Nondestructive Characterization of Interfacial Bonding in Metal-Matrix Composites

This award is made to study the change in measured ultrasonic wave speeds with temperature and thereby to measure some types of residual stresses in metal matrix composites.